Acquisition of GC/MS for Advanced Undergraduate Laboratoriesand Undergraduate Research

The department is purchasing a Finnigan MAT Magnum Gas Chromatograph/Mass Spectrometer (GC/MS) plus data handling system. This purchase includes a 62,000 compound database that allows students to do computer matching of mass spectral data of unknowns separated by the GC. Several new experiments are being used to take advantage of the capabilities of the equipment. The experiments involve flavor chemistry, cosmetic additives, plasticizers in polymer samples, and separation and isolation problems. These experiments are being used in upper-level Advanced Laboratory courses taken by junior and senior Chemistry majors. The equipment is also available for use by students enrolled in the Undergraduate Research program. This equipment allows upper-level Chemistry majors to experience the GC/MS technique as it is used by practicing chemists in modern laboratories.